Developing Critical Thinking & Content Mastery in Non-Traditional Students: A Comprehensive, Technologically Enhanced Approach

9354477 Lemons A significant mismatch exists between what traditional Anatomy and Physiology (A&P) courses offer and what many non-traditional students need. As a result these students are not learning how living human systems function, but rather are memorizing many often disconnected facts about them. We propose a new, innovative curriculum which: 1) presents function first, in the context of a broad organizing theme, and then introduces anatomical and physiological details to explain the function, 2) reverses the order of the traditional teaching process by beginning with hands-on exploration with physical models, and then progressing to higher level thinking, 3) places the highest priority on critical thinking about physiological systems so students learn to solve problems, 4) uses computer technology as a tool to support all stages of learning, not as the focus of it, 5) provides structured out-of-class support and 6) uses assessment as an integral part of the learning process, not just an endpoint. To demonstrate this new approach, we present in detail our modified learning cycle method for the unit on the heart. When this new curriculum is completed, we plan to: 1) Facilitate its implementation, a) in other CCNY courses, b) at the three community colleges whose faculty are involved in the project and c) at three local high schools. 2) Disseminate widely the learning cycle exercises and the student assessment plan. 3) Publish about, and present the project at the national level. Nothing could be more important from our perspective, than to introduce competent, critical thinkers into the science pipeline from our courses, and we expect the new A&P sequence to be a model curriculum for doing this. We also expect to see significant improvement in the critical thinking ability and A&P content mastery of women and minorities who makeup the overwhelming majority of our student. ***